Geometry and Representations of P-adic Groups

The PI will study the theory of types in representation theory of
p-adic groups, intiated by Bushnell-Kutzko, from different angles.
Firstly, we (jointly with Julee Kim) would like to show that the pairs
constructed by the PI are actually types. This is known so far only when
the expected corresponding inertia classes consist of supercuspidal
representations. Secondly, the PI has shown that the compact open
subgroup in this construction underlies a natural smooth group scheme. We
envisage that there should be more algebrao-geometric structure on the
pair, possibly a cohomological realization of types. This will bring
new connections with other parts of representation theory where
geometric/cohomological method is used.

The representation theory of p-adic groups is part of the Langlands
program, a philosophy linking representations with number theory and
automorphic forms. Hence it is the corner stone of many applications of
the latter. The theory of types is a new development in the past 10 years
and sheds new lights on the subject. But the types are rather complicated
objects and are well-understood only in special cases. This project will
endow more structures and meanings to the types to enable new connections
with number theory and its applications.